Cyclic Loading Induced Fluid Flow Associated with Mechanotransduction in Bones

The simulation of fluid flow in bones has received considerable attention
in the field of biomechanics. Limited studies have been conducted up to
date to investigate the deformation and fluid pressure of bone under well
controlled conditions. A series of experimental studies is proposed to
investigate the response of bone specimens under monotonic followed by
cyclic loadings. In the experiment, the bone specimen is confined in a
rubber membrane using an all-around pressure enclosed in a newly developed
device. The induced deformation and fluid pressure are measured under
drained and undrained conditions, respectively. The development of plastic
strains and accumulated fluid pressure under cyclic loading will be
revealed for different stress amplitudes and frequencies. The study is
undertaken as a cross-disciplinary and cross-institutional research
between applied mechanics (geomechanics) and medical science. The
understanding of mechanisms of load-induced fluid flow would lead to a
better interpretation of mechanosensory function in bones that has
significant clinical implications.